Establishment of an Observational Filming/Coding Laboratory in the University of Saint Thomas Psychology Department

9451886 Vandiver This project is designed to establish an observational filming/coding laboratory as a component of undergraduate instruction and research. Students are trained in this area and become involved actively with research in both classroom and laboratory situations. They also have the option of incorporating independent research investigations into their undergraduate studies. Specific courses include Experimental Psychology, Child Psychology, and Human Growth and Development. The project also allows students enrolled in Psychology Honors Thesis and Independent Research courses to conduct original behavioral observation research and analyze their findings more effectively. It is expected that the project will also add a real-life research methodology into the curriculum and, combined with a computer laboratory already accessible to students, will give students a unique and sophisticated background in research methods in psychology.